A Computational study of the spray characteristics of a liquid jet atomized by cross-flowing air

It is proposed to develop new numerical algorithms and mathematical models
predicting the breakup of liquid into droplets due to cross-flowing air
and the resulting gas-liquid mixture that follows. New numerical methods
are proposed which exploit large-aspect ratio computational elements. The
investigator together with two graduate students, shall develop new algorithms
for including the capability for large aspect ratio elements, as a part of
a dynamic block-structured adaptive mesh method. The study of large aspect
ratio elements as a part of an adaptive, unstructured grid framework has
received significant attention recently (albeit, not in the context of
two-phase flows, as we propose to study). In contrast, the study of
moving mesh methods with large aspect ratio elements, as a part of a block
structured adaptive framework, has received very little attention. An
algorithm based on block structured adaptive mesh refinement affords one
the advantage of easy scalability in regard to parallel computing, adoption
of multigrid methodology and implementation of temporal sub-cycling
techniques. Numerical analysis issues regarding stability and convergence
of a numerical method when applied on a moving mesh, block structured
adaptive grid, shall be investigated. Also, algorithms defining the motion
of the moving mesh shall be investigated. It is important that the level
of skewness for the moving mesh can be controlled. Research developed in
this proposal can be applied to mathematical problems that exhibit moving
boundary layers, shock waves, ignition fronts, or sharp interfaces.

This proposal is concerned with the development of orders of magnitude faster
(100 times faster) numerical tools for the simulation of multiphase flow
problems as applicable to science and industry. These numerical tools shall
be specifically formulated for high-density ratio, high-shear flows at an
acceptable computational cost for engineering analysis of practical problems.
One immediate application of the proposed research is a jet-propulsion system
in which fuel injected as a liquid is atomized into spray by interaction with
a gas phase. Another application is the prediction of momentum and energy
transfer in the ocean due to hurricane force winds. In order to predict
momentum and energy transfer at the sea surface, one must take into account
the sea spray generated by the high speed winds. The ultimate benefits
to society are reduced pollution, increased engine efficiency, and improved
hurricane predictive capability due to a more accurate sea-spray
parameterization. This proposal is motivated by interactions between the
PI and industry (e.g. UTRC). Success of this proposal will not only have a
direct impact on industrial applications relevant to atomization type
processes, but also a direct impact on any industrial/scientific application
of multiphase flow (e.g. navy ship hydrodynamics, microfluidic applications
for testing human serum, biological fluid flows, nuclear reactor cooling
systems, and underwater explosions). The PI has ongoing collaborations with
SAIC (ship hydrodynamics), Department of Applied Chemistry at the Muroran
Institute of Technology (non-newtonian multiphase flows in chemical processing
applications), the Center for Bio-Imaging and Modeling at Rutgers University
(CBIM, visualization and animation of multiphase flows), for which all of
these collaborations benefit from the proposed research on simulating
multiphase flows. The proposed research involves the participation of
graduate students; graduate students shall be trained on issues which are
timely and to which they have access to experts in the field.